Biophysical Chemistry in the Undergraduate Curriculum

The Department of Chemistry is purchasing a superspeed centrifuge and a scanning lifetime spectrofluorometer capable of both steady-state measurements and kinetic measurements in the 100 picosecond-1 microsecond time regime. The instruments are being used to introduce biophysical chemistry experiments into the laboratory portions of upper level chemistry courses and independent study projects. Included in the new curriculum is the study of inhibitor binding following isolation and fractionation of chloroplast membranes and fragments.